Interfacial Composite Membranes of Gas Separations

The P.I. (Dr. Wijmans) proposes to prepare a thin (0.05 to 0.1 um) membrane which is the active separating agent in a composite for mechanical strength. The thin film is defect free so a high selectivity and hence a high separation factor can be achieved.